Travel: Oregon Programming Languages Summer School 2026: Types, Proofs, and Program Logics

This award provides student travel for the 2026 Oregon Programming Languages Summer School (OPLSS) to be held at the University of Oregon. This summer school provides an important and valuable educational opportunity for students to study foundational topics related to programming languages and verification. The focus of this year's school is "Types, Proofs, and Program Logic".

The significance and importance of the summer school include: instructing how to build and reason about reliability and correctness of computing systems, which is particularly important for systems with artificial intelligence (AI) and machine learning components; building international community and cooperation in foundational research areas; and enhancing education of US students by exposure to and interaction with leading-edge research and researchers. By supporting US-based students, the school will thus train the next generation of researchers and practitioners in both industry and academia, thus supporting NSF priorities.